Technology in Teaching and Research: A Look at Private Education in Appalachia

Alice W. Brown DUE-9554456 Appalachian College Association $19,166 Berea, KY 40403 Special Computing Title: Technology in Teaching and Research: A Look at Private Education in Appalachia Technology in Teaching and Research is an ambitious, long- range project designed to unite the efforts of faculty in private colleges across the Appalachian region to strengthen their use of technology in the undergraduate curriculum. The first step in the project, A Look at Private Education in Appalachia, is to determine what technology is currently in place and how faculty are using it in their classrooms, both for instruction and research. The study is expected to show that while many of the Appalachian colleges and faculty are seriously lacking in the resources necessary to employ technology to strengthen their instruction, in far more cases the colleges and their faculty are on the edge of excellence in their access to and use of technology. At the end of the study, a college or faculty member will be able to examine itself or himself in view of what is happening at like institutions. The college will be able to determine what is necessary to strengthen its competitive edge in recruiting and maintaining students, and the faculty will be able to identify other faculty across the region who share their interest or who can strengthen their knowledge and skills. The final report documenting the results of the study will be available for dissemination to colleges across the nation who may also want to prepare for the 21st century.